Development of Resistance Models for Wood Formworks

Failure of concrete structures during construction constitutes a significant percentage of construction failures. Among the causes of formwork failure are inadequate strength and overloading. The proposed study will concentrate on developing probability models for predicting the resistances and stiffnesses of handset wood slab formworks commonly used in multistory concrete construction. The behavior of a formwork system is not only a function of the strength and the physical condition of its members but also the quality of its installation workmanship. Therefore, to develop formwork load-deformation and resistance models, samples of formwork members and form installation workmanship data will be collected from several construction sites. Each collected member sample will be erected in the lab for test with the same installation deviations and inaccuracies measured for it at the construction site. The tests results will be used to derive probability models expressing the resistance and stiffness of wood formworks.